ERI: Hybrid Physics-Informed and Data-Driven Modeling and Vibration Control of Variable-Mass Rotating Machinery

This Engineering Research Initiation (ERI) grant will fund research related to high-speed industrial centrifuges that are essential machines for modern public health and environmental protection. They are used to rapidly produce vaccines and biological therapies, to process and purify proteins and other life-saving medicines, and to separate harmful microplastic and nanoplastic pollutants from drinking water and natural waterways. A critical challenge is that many of these machines continuously add or remove fluid during operation, causing their mass to change over time. This variable-mass condition generates complex, evolving vibrations that can degrade machine performance, cause premature mechanical failure, and limit the speeds at which these centrifuges can safely operate. Improving the understanding and control of these vibrations would directly advance the reliability and throughput of machines that protect public health and the environment. This project addresses this challenge by developing new mathematical models and vibration suppression methods for high-speed variable-mass centrifuges, in partnership with an industrial collaborator that manufactures such machines. The project will train graduate and undergraduate students in advanced research methods and will engage high school students through a summer engineering outreach program, inspiring the next generation of innovators.

This project pursues two interconnected research objectives. The first is to discover accurate governing equations for variable-mass rotating machines by constructing a physics-informed candidate function library derived from the Lagrange-Cayley formulation for variable-mass mechanical systems, and then applying machine learning and sparse regression techniques to identify the most physically meaningful terms from experimental measurements collected on a custom-built laboratory test rig. The second objective is to design novel active vibration control algorithms that suppress lateral vibrations under continuously changing mass conditions. This involves using finite element analysis and particle swarm optimization to identify the best locations for sensors and actuators, and then developing a nonsingular terminal sliding mode control law that maintains closed-loop stability and performance across the full range of mass variation encountered during centrifuge operation. All models and control algorithms will be validated experimentally on the laboratory test rig and on an industrial centrifuge prototype at the collaborating company’s facility.